CAREER: Light-weight Near-optimal Stochastic Control Policies for Information Acquisition and Exploitation

Dr. Munagala will develop theoretical models for the problems of
uncertainty and imprecise information in computing and communication
systems such as wireless sensor networks and grid computers, and
design algorithms and policies to ameliorate their impact on system
performance, thereby leading to more effective larger-scale
deployments of such systems.

He will also develop algorithms for computing dynamic information
acquisition strategies in uncertain environments, that jointly
optimize the cost of acquiring more information, together with the
gain from exploiting the information to enhance system
performance. This class of problems falls within the larger area of
stochastic control theory.

It is well known that computing and storing the optimal control
policies (or strategies) needs exponential time and space. However, in
the scenarios that Dr. Munagala will investigate, the system can
tolerate certain suboptimality in the quality of planning decisions,
but the real requirement is that the policies be extremely lightweight
to compute and execute. This motivates the formulation and design of
computationally efficient approximately optimal policies for an entire
gamut of fundamental control theoretic problems.

The PI will draw upon his expertise in approximation and online
algorithms to develop new insights to address important theoretical
questions in stochastic control theory, with emphasis on information
acquisition and exploitation problems. In contrast with techniques
developed in the AI and operations research communities, the solutions
developed will have provable performance guarantees, in addition to
being efficient to implement. The novel algorithmic principles
emerging from this project will lay the foundations for developing a
fresh theory of approximate stochastic control.